Purchase of 300 MHz NMR Spectrometer

Nuclear Magnetic Resonance (NMR) Sepctroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterized specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. This award from the Chemistry Shared Instrumentation Program will help the Chemistry Department of the Illinois State University, to acquire, operate and maintain a high-field NMR spectrometer. The acquisition of the instrument will enhance the ability of the Department to prepare undergraduate and graduate students for possible careers in chemistry and will enhance research in the following areas: 1. studies of geochemical compounds; 2. studies of the effect of neutrons on electron transfer reactions; 3. studies of synthetic methods using a one carbon reactant; 4. studies on organo-metallic compounds.